Dense Gas Workshop to be held at the University of Colorado-Boulder in June 1999

Dense gases exhibit thermodynamic properties and gas dynamics behavior that can be significantly different from the low density (sp. gr.~ 10 -3) gases that are normally encountered. The proposed workshop will provide a welcome opportunity to permit a wide range of researchers to interact and to clarify the issues of consensus and the issues to which attention should be directed.